Tribal College and University Profiles

This project will develop, publish and disseminate a
reference guide to the nation’s 35 tribally controlled colleges and universities. Tribal
College and University Profiles will feature descriptions of each institution, as well as
introductory information on the history and philosophy of the tribal college movement. In
addition, it will summarize the role
and impact of NSF-supported STEM education initiatives.
The proposed reference guide supports the National Science Foundation’s STEM and capacity
building initiatives targeting tribal colleges. Because tribal colleges are small, rural
and underfunded, their needs and accomplishments are frequently overlooked by policy
makers and funders within the public and private sectors. Publication of Tribal College
and University Profiles brings greater visibility to the movement and creates
opportunities for tribal colleges to showcase accomplishments and identify new
partnerships.
The project will result in publication of a professionally written and designed book of
approximately 96 pages. With an anticipated print run of 4,500 copies, it will be widely
distributed among mainstream educational institutions, federal agencies, policy makers and
nonprofits. The guide will also be distributed to tribal colleges, the National Science
Foundation, and associations affiliated with the tribal college movement.